Combined Research-Curriculum Development in Computational Materials Science and Nanoscale Science and Engineering

This award provides funding to the University of Illinois at Urbana-Champaign for the support of a CRCD project entitled, " Combined Research-Curriculum Development in Computational Materials Science and Nanoscale Science and Engineering," under the direction of Dr. David M. Ceperley. This project will develop curricular materials for advanced undergraduate and beginning graduate-level computational materials science (CMS) courses based on cutting edge, contemporary research, with an emphasis on problems in nanoscale science and engineering. Topics will include numerical methods in computational materials science, parallel and high performance computing, basic simulation methods, simulation of quantum systems, Monte Carlo methods, computational microelectromechanical systems (MEMS), computational molecular biology and computational biotechnology, and scientific visualization.